Infrared Spectroscopic Studies of the Structure and Reactions of Molecules on Metal Surfaces

Surface vibrational spectroscopy, using reflection absorption infrared methods, is the focus of this research project supported by the Analytical and Surface Chemistry Program. Professor Trenary and his students at the University of Illinois at Chicago will determine the identity and structure of adsorbed species using vibrational spectroscopy. Normal mode analysis will be applied to the interpretation of this spectroscopic data, enabling assignment of vibrational bands, and determination of structural parameters for the adsorbed species. The application of these methods to the methoxy intermediate on copper surfaces, and to isocyanide and related moieties on platinum surfaces are the primary systems of interest. The results of this work will see broad application in the routine use of surface IR to characterize reaction processes. The use of surface infrared spectroscopy as a routine analytical tool will be enabled by the development of normal mode analysis methods which are the subject of this research project. In order to understand reaction processes on surfaces, adsorbed reactants, products, and intermediates must be identified and structurally characterized. Normal mode methods will make this characterization routinely available to the surface chemistry community.